Research Initiation Award: The Development of a New Analytic Method for Calculating the Harmonics in Power Systems Caused by Power Electronic Circuits

This is a Research Initiation Award dealing with modelling and analysis of switched electronic systems. The systems will be modelled by linear time varying periodic or quasi-periodic differential equations. Using the theory established for such systems, predictions of stability, damping and harmonics will be done. Such information will provide more qualitative information compared with time domain simulation.